Transport Properties of Metallic Microstructures

This research concerns electronic transport in ultra-small metallic structures. These are structures in which one or more dimensions are of order 1000 or less. Fundamental questions concerning electron motion in disordered systems will be investigated. These structures will also be used as tools for the study of fundamental physical phenomena. Topics which will be investigated include the effects of reduced dimensionality on the behavior of magnetic impurities (Kondo effect), nonlinear behavior in the presence of microwave fields, magnetization reversal through quantum tunneling in individual 100 particles, and superconductivity in one dimension. %%% Ultra-small metallic structures form the basis of all current microelectronic devices. The small size of these devices is central to their high performance and low cost, and thus there is a continuing desire to develop ever smaller devices. The purpose of this research is two-fold. First, to study the fundamental properties of metallic structures with sizes below 100 nanometers. While this is considerably smaller than currently available commercial devices, structures in this size range will be of great importance in future generations of devices. It is important to understand the behavior of these structures, particularly since they will likely exhibit new properties which are not found in larger structures. Second, these structures will be used as tools in the study of fundamental phenomena. In many cases these structures can be used to probe effects which are not accessible with larger structures. Examples include superconductivity in one dimension, and the effect of confinement on magnetic ions in metals.